Workshop on Fundamental Research in Networking; April 2003; Warrenton, Virginia

This award is for a one-and-a-half-day workshop on "Fundamental Research in Networking." The workshop will bring together researchers with expertise covering a broad spectrum of areas within networking. The purpose of this workshop is to provide vision and direction for fundamental research in networking. The outcome of the workshop will be a detailed report documenting the discussions and will provide overall recommendations that will be available to the community and can help to better articulate the future research agenda in networking. The workshop will stimulate far-reaching future research, collaborations and evolvement of the networking research community.